Acquisition of a Multi-Angle Laser Light Scattering Instrument for Determination of Molecular Weights and Shapes for Macromolecular Systems

This award from the Chemistry Research Instrumentation and Facilities (CRIF) Program and the Major Research Instrumentation (MRI) Program will assist the Department of Chemistry at Eastern Michigan University to acquire a multi-angle laser light scattering spectrometer. This equipment will enhance research in a number of areas including the following: (1) determination of accurate molecular weight of novel polybenzotriazoles, (2) study of the laser photothermal surface lensing effect, (3) studying the photogenerated thiols for epoxy curing, (4) metal-catalyzed thermal decomposition of synthetic lubricants, and (5) probe of the changes in the molecular shape of proteins and RNA of known molecular weight. A laser can provide important information about chemical reactivity. Its use may enable breakthroughs in our understanding of the properties of reactivity and non-reactivity of molecules..